Design of a Comprehensive Disaster Information System

9309369 Glickman This project is the design phase of a comprehensive database for disasters worldwide, including the development of the requisite protocols for data collection and data processing. Such a systematic and comprehensive database is necessary for research, policy analysis, and decision making related to the societal concerns about major natural and technological hazards. The information incorporated into the database is drawn primarily from current news reports, including both immediate and longer- term accounts of the disaster events. The design phase of the project establishes critical definitions and selection criteria, analyzes data sources and electronic data collection options, and develops collection and coding protocols. All steps will be reviewed by an expert panel before expanding the project into later phases. ***